Metal Cluster Active Sites in Proteins

Dr. Que will investigate the active site structures of hemerythrin, purple acid phosphates and methane monooxygenase and the extent that the oxo.bridged binuclear clusters found in the prototypical methemerythrin active site is conserved in this group of proteins. NMR, EXFAS, EPR, Mossbauer, magnetic susceptibility and resonance Raman techniques will be applied to study the active sites. Model compounds will be used as necessary to ascertain spectroscopic signatures. Proteins containing iron.oxo clusters at their active sites constitute a subclass of metalloproteins which include hemerythrin, certain ribonucleotide reductases, purple acid phosphatases possibly methane monooxygenase. The hemerythrins function as oxygen transport proteins in marine invertebrates. The ribonucleotide reductases convert ribonucleotides to deoxyribonucleotides and are therefore important for cell replication. The purple acid phosphatases catalyze the hydrolysis of phosphate esters while methane monooxygenase converts methane to methanol. Dr. Que will investigate how nature can tune the environment of the cluster to perform these different biochemical reactions.